CAREER: A Multi-Level Approach to Malicious Mobile Code Detection

Mobile code can be defined as executable content that is transferred to a
remote environment and executed there automatically. Attacks from malicious
mobile code can be detected by analyzing the information associated with the
execution of code and identifying malicious behavior. This analysis process is
called intrusion detection while the process of collecting the necessary
information is called auditing.

Unfortunately, most systems that support code mobility provide no auditing
mechanisms or are able to produce only incomplete information about the
activity of mobile code.

To overcome these problems, a multi-level approach to malicious mobile code
detection is proposed. The approach relies on the instrumentation of the
different components of the mobile code execution architecture to gather
complete information about the actions of the mobile code. The events
collected at different abstraction levels are used as input to multi-stream
intrusion detection analysis. The intrusion detection process uses both fusion
and correlation techniques to detect attacks and perform proactive response
procedures that limit the impact of an attack. In particular, the research
focuses on the containment of the spread of worm applications.

The results of this research will be used both to retrofit existing systems
and to secure future applications. In particular, in the near future mobile
code will become a fundamental mechanism for the upgrade and management of
mobile devices, as IP connectivity is brought to the millions of cellular
phones in use today. The use of multi-level intrusion detection will provide
techniques to protect both the infrastructure and the user terminals against
malicious mobile code.